U.S.-Japan Joint Seminar: High-Pressure Research in Mineral Physics--Application to the Study of the Earth and PlanetaryInteriors/January 1991/Ise, Japan

This award will support the participation of six U.S. scientists in a U.S.-Japan joint seminar on high-pressure research in mineral physics. Participants will discuss and exchange the latest experimental and theoretical results in interdisciplinary research on the physical and chemical properties of Earth and planetary materials, and will consider the implications of these results to conditions in the interior of the Earth and other planets. The agenda includes consideration of progress made with current state-of-the-art ultrahigh pressure and temperature techniques and their geophysical and geochemical applications. Seminar co-organizers are Dr. Murli H. Manghnani, Hawaii Institute of Geophysics, University of Hawaii at Manoa, and Dr. Yasuhiko Syono, Institute for Materials Research, Tohoku University, Sendai, Japan. The seminar will take place January 15-18, 1991, in Ise, Mie-ken, Japan, under the auspices of the U.S.-Japan Cooperative Science Program. Mineral physics is the scientific study of Earth and planetary materials. Significant advances have been made recently in high-pressure research in mineral physics in the U.S. and Japan, particularly in the applications of ultrahigh pressure and temperature techniques to geochemical and geophysical studies related to the Earth and planetary interiors. It is now possible to conduct experiments under temperature and pressure conditions equaling those in the Earth's mantle and core, and in the outer portions of the interiors of the major planets. This seminar will provide an opportunity for a number of U.S. and Japanese scientists, as well as a few researchers from other countries who are active in this area, to exchange ideas and information on the subject, and to promote possible future joint research projects.